Computer-Aided Modeling and Simulation to Improve Undergraduate Chemical Engineering Education

Engineering - Chemical (53)
This project adapts the McMaster University Program in problem-based learning (PBL) combined with progress being made in interactive computer-aided instruction at the University of Michigan (which utilizes virtual reality). This implementation is aimed at improving the ability of Lamar University Beaumont's Chemical Engineering Department to give its students a better understanding of the basics of chemical engineering and at the same time develop their skills in using computer packages properly. The primary objective of the project is to use computer-aided modeling and simulation packages with proven learning principles and realistic problem practices to provide accelerated exposure to problem-based learning. The project impacts nine courses in the chemical engineering curriculum through the use of "hands-on" modeling and simulation of chemical molecules, processes, and processing equipment. The ABET Engineering Criteria 2000 framework is used to evaluate the project's student learning outcomes. This project also contributes to the university's efforts to reach high school teachers and students through science and engineering demonstrations incorporating PBL.